Next Generation Software: Grid Application Development Software (GrADS)

EIA-9975020
Rice University
Kennedy, Ken W.

Grid Application Development Software (GrADS)

This proposal will make it possible to have advances in networking technologies to use the global information infrastructure in a qualitatively different way-as a computational resource as well as and information resource. This idea for an integrated computation and information resource called the Computational Power Grid has been described by the recent book entitled The Grid: Blueprint for a New Computing Infrastructure [40]. The Grid will connect the nation's computers, databases, instruments, and people in a seamless web, supporting emerging computation-rich application concepts such as remote computing, distributed supercomputing, tele-immersion, smart instruments, and data-mining.

To realize this vision, significant scientific and technical obstacles must be overcome. Principal among these is usability. Because the Grid will be inherently more complex than existing computer systems, programs that execute on the Grid will reflect some of this complexity. The Grid resources will be useful and accessible to scientist and engineers requiring new software tools that embody major advances in both the theory and practice of building Grid applications.

The goal of the Grid Application Development Software (GrADS) Project is to simply distribute heterogeneous computing in the same way that the World Wide Web simplified information sharing over the Internet. The GrADS projects will explore the scientific and technical problems that must be solved to make Grid application development and performance tuning for real applications an everyday practice.